SBIR Phase I: Advanced Plasma Processing System for Pollution Control

9860140
This Small Business Innovation Research Phase I project addresses the elimination of toxic compounds from air streams. Pulsed corona discharges are particularly useful for this application. However, suitable pulse modulators are not available, and the efficiency for corona processing must be increased to be competitive in many cases. The objective of this project (Phases I and II) is to overcome these limitations by demonstrating the efficacy of using the novel Advanced Solid-State Modulator (ASM) combined with a high temperature (up to 300c"C) corona reactor. Phase I addresses this objective through: (1) assembly of a 50 kV, I kW ASM/corona experiment; (2) experiments to demonstrate technical and economic feasibility; and (3) preliminary design for a 10 kW, Phase II, laboratory prototype ASM/corona system. An international pollution control company has already expressed interest in this work. This proposal responds to the 1998 NSF emphasis on National Critical Technologies in the area of Pollution Minimization and Remediation.
This project will provide the foundation for commercial uses in areas including: (1) coating operations; (2) chemical manufacturing; (3) fuel and solvent systems; (4) power plants; (5) vehicles; and (6) incinerators.